The Influence of Transverse Material Properties on the Design and Performance of Pultruded Fiber Reinforced PlasticStructures

Pultruded fiber reinforced plastic (FRP) structural shapes are beginning to see use in Civil Engineering practice. The design and performance of pultruded FRP structures is considered in this research. Particular attention is paid to the influence of the transverse properties of the anisotropic pultruded material on the structural response. Experimental and theoretical techniques will be used to obtain nonlinear moment-rotation data and failure information for typical pultruded FRP connections; and buckling, postbuckling and failure data for transversely loaded pultruded FRP beams. The use of FRP stiffeners will be considered as a means of improving performance of pultruded structures. The recommendations will be transmitted to the Civil Engineering community and the pultrusion industry through an ASTM committee.